Geoantiquities Video Project

This project will communicate to public audiences the results of NSF grant DEB-9817777, "Earth System History in the Urban Landscape -- Implementing Geosystem Resource Management in Regions of Rapid Urban Growth." Building on prior experience producing NSF-funded video productions, the PI will produce a 10-15 minute video presenting the concept of "geoantiquity," defined as a natural record of earth history that documents environmental change. The video will highlight the steps taken by earth scientists to achieve geoantiquity designation for geologic landforms created by Pleistocene Lake Bonneville in the Salt Lake City, Utah area. The target audience is the general public, but also those actively engaged in land use issues, such as government land management and planning officials, politicians, developers and landowners.